MPS-Ascend: Superfluid Dark Matter: Unveiling the Dark Sector of the Cosmos

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). Humberto Gilmer is awarded an NSF Mathematical and Physical Sciences Ascending Postdoctoral Research Fellowship to conduct a program of research and activities related to broadening participation by groups underrepresented in STEM. This fellowship to Dr. Gilmer supports his research project entitled " MPS-Ascend: Superfluid Dark Matter: Unveiling the Dark Sector of the Cosmos", under the mentorship of a sponsoring scientist. The host institution for the fellowship is Brown University and the sponsoring scientist is Dr. Stephon Alexander.

Gilmer will explore a study a model of self-interacting dark matter which will provide an understanding of how dark matter mediates the gravitational interaction on galactic length scales, resolving the discrepancies present in the Standard Model of cosmology. Gilmer will also work to increase the participation of historically excluded minority students in the Providence, RI area through the creation of an Arts in STEM program at Brown University. This program will provide participants with knowledge of opportunities in STEM and a sense of science identity.